Preparation and Characterization of Oxide and Sulfide Thin Films

This renewal proposal will apply a novel technique of spray pyrolysis of molecular precursors to the preparation of thin films of oxides and sulfides on various substrates. The technique, developed by the Principal Investigator, will be applied to chromium oxide, gallium oxide, and zirconium oxide, and to zinc sulfide and zinc selinide doped with various magnetic ions. Physical characterization of the films will include optical microscopy, electron and x-ray diffraction and electronic resistivity measurements. Chemical characterization will include a study of stability towards oxidation and/or reduction, and a correlation of properties exhibited by the films and bulk materials of corresponding compositions.